ITR/SI(CISE):Optimal and Robust TCP Congestion Control

Internet is undergoing an overhaul unprecedented in size, diversity, and reach, with profound im-
pact in all aspects of our scientific, social, economic and political life through the integration of
networks of communication, transportation, entertainment, utilities, and finance. The stability
and robustness of this vital infrastructure demands a rigorous theory to understand the current
protocols and evolve them to meet emerging challenges. We propose to develop such a theory for
TCP congestion control, and use it to drastically improve the stability, robustness and optimality
of the current protocols.
A key insight is to view congestion control as a distributed asynchronous computation to maxi-
mize aggregate source utility over the Internet; different TCP and active queue management (AQM)
schemes correspond to different utility functions and different algorithms to maximize them.
Our research hastwo components. First, we will develop a new theoretical model of TCP
congestion control based on duality in optimization and multivariate robust control. The theory will
clarify the role of source algorithms, such as Tahoe, Reno and Vegas, and active queue management,
such as DropTail, RED and REM, in the control of networks and establish performance limits of
the current protocols; it will explain the effect on stability when delay, topology, capacity, and load
scale up; and it will provide conditions under which the feedback stability ofTCP/AQM algorithms
are invariant to these effects. Indeed, such a theory is already emerging from our recent works.
Even in its currently preliminary stage, it already provides a fundamental understanding on some
widely observed performance and fairness behavior of the current protocols, and uncovers new and
surprising stability problems. For example, it shows that the current protocols become unstable and
exhibit bifurcation when network capacity increases. Moreover, maintaining stability as capacity
scales up arbitrarily imposes severe constraints on how sources adjust their rates (TCP) and what
congestion information is fed back (AQM). The current protocol does not satisfy the condition
for such stability invariance, and hence may be ill suited for future networks where, pulled by
application demand and pushed by technological advances, the capacity will be large.
The second component of our research is the design of practical TCP and AQM protocols
based on the theory, and the development of prototypes and experiments to demonstrate their
effectiveness. We will use the theory to identify the sources of instability in the current protocols
when delay, network size, capacity, and traffic load scale up. We will design both enhancements that
incrementally evolve the current protocols, and drastically new protocols that have the strongly
robust stability property promised by theory. As a concrete application of our algorithms, we will
apply them to improve TCP performance over wireless links, both because they are ubiquitous and
because they are likely to remain the most important bottlenecks in future networks.